Creation of a Web Site for Resolution of Site Response Issues from the 1994 Northridge Earthquake (ROSRINE)

9712787 Bardet This action is to support the establishment of an Internet World Wide Web (WWW) site for the NSF project "Resolution of Site Response Issues from the 1994 Northridge Earthquake (ROSRINE)". The ROSRINE project brings together a strongly-coordinated group of geologists, geotechnical engineers and seismologists from a number of organizations to address geotechnical site characterization and ground response issues resulting from the 1994 Northridge earthquake. This project is funded by the National Science Foundation, with cost-sharing from the California Department of Transportation (Caltrans), the Electric Power Research Institute (EPRI), the Southern California Earthquake Center (SCEC), and the U.S. Geological Survey (USGS). The project is performed in cooperation with the California Department of Mines and Geology (CDMG). Two critical elements of ROSRINE are (1) the data exchange between the research teams, and (2) the data dissemination to a large number of researchers and practicing engineers. This is now to be achieved through the creation of an Internet WWW site in order to exchange and disseminate ROSRINE-generated data in an efficient and timely manner.